REU: Evaluating the Early and Middle Proterozoic Tectonic Evolution of Southwestern North America

Two conflicting tectonic models exist for similar aged Proterozoic terranes in New Mexico and Arizona. In Arizona, previous work indicates an end to tectonism and metamorphism by 1600 Ma, whereas in New Mexico, recent work suggests major tectonic and metamorphic events during the interval 1450-950 Ma. This study will focus on four key areas in New Mexico with the specific objective of relating the existing 40Ar/39Ar spectra to the tectonic, metamorphic and granite intrusion events. Detailed field observations on regionally important ductile shear zones and their wall rocks, and on plutons and their aureoles, will determine the relative ages of fabrics in the rocks. Laboratory work on the structural and metamorphic fabrics, together with P-T-t determinations using new 40Ar/39Ar determinations will resolve the spatial relationships of the differently aged rocks to shear zones and pluton emplacement. The results will have important consequences for the Proterozoic tectonic history of SW USA.